LEAPS-MPS: Importance, Significance, and Fairness in Large-Scale Estimation and Testing of Heteroscedastic Data

The proposed research addresses two issues of increasing concern in the scientific community. One is that data has become so cheap and easy to collect that it is all too often difficult or impossible to reproduce these data or even entire studies. The second is that algorithms often encode biases with unintended consequences. The so-called reproducibility crisis and algorithmic fairness problems each have multiple causes, but one that they share is grounded in the unequal variability of most large-scale data such as their heteroscedasticity. Ameliorating these issues in modern data problems requires two fields of statistics for large-scale data: multiple testing and large-scale estimation. Advances in both fields are combined as they have not been previously to create powerful, theoretically backed statistical methodology. The economic, moral, and social impacts affect STEM research, public policy, and technology, as well as entertainment, finance, and sports, fields from which we analyze data in this proposal. The broader impacts and wide application of this project also provide underrepresented minority (URM) students with opportunities to produce scholarly work; bolster research infrastructure at a primarily undergraduate institute (PUI) and Hispanic Serving Institute (HSI); train URM members in professional development to help remove barriers to their participation in technological innovation; and invite the industry sector into the academic research feedback loop.

This project focuses on developing new inferential procedures for estimating, selecting, and ranking heteroscedastic data. When heteroscedastic data needs to be selected and ranked, as is often the case with large-scale data, both replicability and fairness issues arise together. The goal of this proposal is to resolve the dual issues of estimation and significance by developing new inferential procedures for ranking and selecting heteroscedastic data. The three objectives are to: (i) select ordered hypotheses based on the importance of data results, (ii) create more efficient and accurate estimators for large-scale data, (iii) create rankings to address inequities. The first objective will be accomplished by reversing the typical multiple hypothesis testing steps of ordering and then selecting hypotheses, which will better balance estimated effect size and variability; the second objective, by developing a convex optimization technique; and the third objective, by creating a ranking algorithm that accounts for protected characteristics. New algorithms will be developed to implement each of these methods and publicly shared via Github, DataLore, and R packages. Extensive mentorship and professional development opportunities will be offered to undergraduate and graduate students who participate in these research activities.